Development of Interactive Tools for Learning Genetics

Biological Sciences (61) This proof of concept project integrates technology into genetics instruction and amplifies faculty effectiveness by providing a better learning environment for students. Interactive, highly visual computer-based tools include tutorials for problem solving, the use of simulated crosses to generate data, and assessments of conceptual knowledge through 2D mapping exercises. The project brings together content experts with artists and student developers in an authoring team to create these tools. The product provides the basis for assessing and evaluating knowledge transfer between different subjects or classes in genetics. The expected immediate audience is approximately 1700 students per year in the University of California at Los Angeles Introductory Genetics class, plus an additional 300 students at the University of California at Santan Barbara and students at two year community colleges in the Los Angeles area with articulated programs. The long-term audience will be students in genetics classes nationwide. The final project planned is a CD-ROM web hybrid for distribution to students for independent study and discussion section cooperative exercises.